AIT-CCNAA Cooperative Research: U.S.-Taiwan Joint Seminar On Mechanical Design on November 7-15 in Taipei, Taiwan

This is an AIT.CCNAA collaborative joint seminar on mechanical design. This seminar is organized by Dr. Terry Shoup, Santa Clara University and Dr. Hong.Sen Yan, National Cheng Kung University. This is an important subject in engineering. The participants to this seminar are the top rated scientists in design research in both the U.S. and Taiwan. Mechanical design is a field which has been expanding rapidly in Taiwan, and one to which the U.S. scientific and engineering communities need to pay particular attention. This seminar will enable U.S. scientists in mechanical design to understand the present state and future direction of this field in Taiwan, and collaborative research between scientists in the U.S. and Taiwan in this field.